Molecular Engineering of Advanced Materials: New Polymerization Strategies for Synthesizing Main Group Polymers

This award is made as the starter grant increment of Dr. Jeffrey Moore's Postdoctoral Fellowship in Chemistry Award insupport of his research at the University of Michigan. The main thrust of Dr. Moore's research is the development of new polymerization strategies for synthesizing macromolecules that contain main group elements in their backbone. These macromolecules are valuable intermediates for ceramics and other novel solid-state materials. The initial approach will be the synthesis of bicyclic cyclohexadiene monomers containing main group elements. The objective of these studies is to identify systems which can catalytically eliminate the inorganic substituents by simultaneously extruding an aromatic fragment. These reactions may be initiated by either cationic or anionic reagents. Once systems have been identified, model reaction studies will be used to optimize molecular parameters relevant to this chemistry.